Optimization of Freshwater Inflows to Estuaries

This is an award to support research on development of a methodology that can be used for optimizing the freshwater inflows into bays and estuaries for concurrent, possibly conflicting purposes. The objective is a mathematical model that can be used to determine the appropriate balance between freshwater inflow required to maintain desired levels of water quality in estuaries needed to maintain their biological productivity and water needs for upland agricultural, municipal and industrial purposes. The research to find a general optimization model involves incorporation of a hydrodynamic salinity model with nonlinear statistical regressions of biological productivity as measured by the fishery harvest from the estuary, bay or ocean. This project, involving as it does water quality considerations in estuaries at the ocean/land-surface drainage interface is jointly supported by the Environmental and the Ocean Systems segments of the Environmental and Ocean Systems Program. Results are expected to be useful for engineering design and management of amounts and quality of water inflows into bays and estuaries for meeting concurrent and possibly conflicting requirements such as water supplies for agriculture, municipal and industrial needs and the need to maintain the biological productivity of estuarine, bay and ocean waters.